Laboratory Exercises in Plant Biochemistry

John P. Markwell DUE 9550791 U of Nebraska Lincoln FY1995 $48,208 Lincoln, NE 685880430 ILI - Leadership in Laboratory Development: Life Sciences Title: Laboratory Exercises in Plant Biochemistry Most laboratory courses utilize experimental materials which students find abstract, are presented in an uncoordinated manner, and are "canned" or confirmatory in nature. The use of more interesting materials would promote student involvement, while presentation in an intellectually stimulating context would enhance learning. This project is developing a series of experiments on plant acids and pigments designed to implement a new approach to engaging students in science. The target audience of these exercises is non-major biochemistry students. The experiments are designed to focus on the development of student expertise in the use of research tools, expose all students to the process of scientific research, and provide a framework for cooperative learning opportunities. The project is developing coordinated experiments which will reward students with a sense of progressive mastery of earlier concepts and tools, and foster a holistic view of science. The goal of this tool-based approach is to empower students to generate and answer their own questions about the world around them and lead them into independent investigations. Plant acids are used to provide a pedagogical vehicle for learning about Ph and biological buffering, while providing a relevant bridge to familiar commercial products. Plant pigments, specifically anthocyanins, chlorophylls and carotenoids, are used to provide an interesting and colorful approach to an understanding of biochemical phenomena. The developed exercises will be field tested at the P.I.'s institution and disseminated without cost to inte rested undergraduate and educators via electronic means over the Internet. The methods and exercises developed as part of this project will be utilized in the development of an advanced science content course for pre-service teachers in collaboration with faculty from the University of Nebraska Teachers College.